Digital Government: Building Leadership for a Digital Government

EIA-9819960
McGinnes, Patricia
Shelborne, Anthony
Council for Excellence in Government

Digital Government: Building Leadership for a Digital Government

The Council for Excellence in Government, in partnership with the Federal World-Wide Web Consortium, academics and industrial researchers, will design, develop and implement three actitivies to foster greater understanding of the value of the computer/information science research process and products in the Federal Government arena. The three activities are:
1. A Digital Government resource center
2. Education and outreach programs, building on work by the Federal World-Wide Web Consortium, and
3. Planning for the development of a curriculum for a Digital Government Fellows program.